The NSF PI Meeting: The Science of Cloud Computing

The purpose of this award is to support a PI meeting that is bringing together principal investigators, some of them are currently supported via the CISE Directorate in the NSF, in a workshop setting to collectively develop a vision of the Science of Cloud Computing.